The Biology and Systematics of Southeast Asian Frogs

9317642 Ward The comparative method offers a powerful technique for tracking change in functional complexes through time. The origin and subsequent effects of an unusual cranial morphology are examined from this perspective in a group of Southeast Asian frogs (Ranidae). Hormone analysis suggests that the occurrence of the unusual set of morphological traits and behaviors in this group is related to a reduction of testosterone levels and the development of parental care. Proposed work includes continuing investigation of the proximal level of control for the expression of morphological characters, additional observations on the behavior of these unique frogs, and expanded phylogenetic (genealogical) analysis using both morphological and molecular characters. The work will establish the relationship among the components of an apparent functional complex: reduced testosterone and the occurrence of male parental care.